NUE: Infusing Nanomaterials into Undergraduate Science and Engineering Curricula

This Nanotechnology Undergraduate Education (NUE) program entitled, "Infusing Nanomaterials into Undergraduate Science and Engineering Curricula," at Texas A&M University, under the direction of Dr. Jeffrey E. Froyd, is being co-funded by the Directorate for Engineering, Division of Civil and Mechanical Systems (CMS) and the Division of Engineering Education and Centers (EEC). The proposed project will infuse nanotechnology through undergraduate science and engineering curricula in the first year and will develop an undergraduate certificate in nanomaterials.

The proposal for this award was received in response to the Nanoscale Science and Engineering Education (NSEE) program solicitation, NSF 05-543, Nanotechnology Undergraduate Education (NUE) component.